Nonlocal Frameworks for Boundary Interactions: From Flux Transmission to Curvature-Driven Dynamics

Many important scientific and engineering systems are shaped by interactions that extend beyond local effects of immediate neighbors. Cracks in materials, diffusion through complex media, image features, biological transport, and data patterns in artificial intelligence often depend on effects that occur across a finite region rather than at a single point. This project will develop new mathematics for such “nonlocal” interactions, with particular attention to what happens near boundaries and interfaces, where classical models can become unreliable or incomplete. The work will strengthen the scientific foundation for modeling material failure, heterogeneous media, geometric evolution, and data-informed systems. These advances will support national needs in predictive modeling, materials science, computation, and artificial intelligence by improving the reliability of models used to understand complex systems. The project will also train undergraduate and graduate students in applied mathematics, computation, and interdisciplinary research, helping prepare the next generation of scientists for work in academia, industry, and national laboratories.

The project will establish analytical and computational foundations for boundary-driven nonlocal dynamics. The research will develop nonlocal trace, flux, and boundary/transmission operators; prove wellposedness, regularity, and convergence results for nonlocal boundary value problems; analyze nonlocal curvature and curvature-driven flows for integrable kernels and rough geometries; and study inverse and hybrid problems for identifying interaction kernels and interface parameters from data. A central theme is the relationship between nonlocal models and classical local models as the interaction horizon shrinks, including local–nonlocal coupling in multiscale simulations. The project will also use machine learning to approximate nonlocal operators, solve nonlocal equations, infer kernels and constitutive laws from data, construct fast surrogate models, and explore nonlocal curvature methods for dimensional reduction and feature-preserving data preprocessing. The mathematics will be applied to dynamic fracture, diffusion through heterogeneous media, composite interfaces, image processing, curvature-driven evolution, and data-driven continuum modeling.